Density Matrix Renormalization Group Studies of Quasi One-Dimensional Systems

9870930 White This investigator plans to study `stripes' which are patterns of holes and spins observed in neutron scattering experiments in some high temperature cuprate superconductors using the density matrix renormalization group (DMRG) developed by White. The PI plans a large number of "numerical experiments" on doped t-J ladder systems as large as 16x8 that are aimed to answer questions such as: Does a stripe have strong superconducting pairing correlations along its length? At what dopings do stripes appear in two dimensions? At low doping, what is the natural linear hole density of a stripe? How easily do pairs tunnel between stripes? Does pair tunneling greatly enhance pairing? Do stripes attract or repel each other? What does the Fermi surface look like in a striped state? Are (1,1) stripes stable? The PI plans to enhance the DMRG and develop a method for calculating dynamical quantities. Also extensions to three band Hubbard models and one dimensional coupled electron- phonon systems is planned with the aim of applying the DMRG to organic conductors. %%% This award involves research on electronic properties of materials in which strong electron-electron interactions are important. The focus of this effort is on high temperature superconductors and related materials. A method developed by the PI that holds promise for significant advance will be used and refined in this project which contains strong computational components and algorithm development.